Protein Monolayer Electrochemistry

This research project is supported by the Analytical and Surface Chemistry
Program. The Principal Investigator, Professor Edmond Bowden at North
Carolina State University, and his colleagues are addressing fundamental
questions of electron transport between the heme site of cytochrome
proteins and the organic monolayer modified gold electrode surface. By
varying the self-assembled monolayer modification of the gold surface, and
by careful site directed mutation of the cytochrome protein, the effects of
protein orientation and electron transfer distance are probed in these
studies. Spectroscopic characterization of the modified overlayers, using
scanning probe methods, infrared spectroscopy, and photoelectron
spectroscopy, is used to determine overlayer structure and properties.
Mutation and selective chemical modification of the protein overlayer is
used to characterize the interaction between the protein and the modified
electrode surface. Fundamental information gained from these studies will
be of use in the subsequent design of biosensors and biomedical devices.

An understanding of electron transfer between electrode surfaces and
protein molecules bound to the surface is important for the design of
antigen specific sensors and bioanalytical methods. This research project
addresses this electron transfer problem by careful modification and
characterization of both the electrode surface and the protein interacting
with it. Detailed fundamental information on electron transfer rate
processes results from these studies, with direct application to the design
of biosensors.